Information Fields and Communication Topologies

Classical information theory is concerned primarily with random sequences. Recently, researchers have directed attention to random fields over rectangular grids in two and higher dimensions. This project involves a study of information fields over other types of regular structure, in particular over binary trees. Coding theorems for tree fields are likely to find application in data structure theory in computer science and in genetics. Another part of the project is a study of some aspects of communication topologies. One aspect is the design of communication networks using hierarchical techniques for optimally agglomerating individual nodes via concentrators and interconnection of concentrators in a robust manner so that the network can sustain the failure of any single link. Another aspect concerns the optimal embedding of a graph into a rectangular grid, with applications to the design of efficient VLSI planar and multilayer layouts; such as in switched processor networks or programmable gate arrays.